Titanic Science

9909406
RATCLIFFE

The Maryland Science Center requests $1,586,279 to develop "Titanic Science." The Maryland Science Center will develop an 8,000-square foot interactive traveling exhibition focusing on recent scientific and forensic investigations surrounding the Titanic tragedy of 1912. A planning grant from NSF enabled key personnel to participate in the five-week 1998 scientific expedition to the Titanic wreck site and interact with professional scientists. This expedition will target the general public and provide educational services for students in grades 6-9. The exhibition will travel to 15 host sites and be seen by over 2.5 million visitors. To help parents and educators make the most of this exhibition, a Titanic Explorers Kit and teachers guides will be developed.